Presidential Young Investigator Award: Topics in Non-LinearDynamics

It is proposed to study the stationary and dynamic properties of far-from-equilibrium nonlinear stochastic dynamic systems. It is intended to elucidate the mathematical structure of these complex systems while studying specific physical problems in fluid dynamics, non equilibrium statistical physics and quantum field theory. Reaction diffusion equations for the kinetic and stationary states of chemical reactions will be investigated starting from their infinite dimensional hydrodynamic formulation.